Kentucky Statewide Education and Human Resource Program Coordination

9355752 Royster Kentucky Science and Technology Council is proposing a pilot project to have one office provide coordination among the various EPSCoR and other-agency-EPSCoR projects, as well with the Statewide Systemic Initiative project (PRISM). In addition, the project plans to host conferences focusing on issues pertinent to the coordinated activities. ***